Trapping of Small Atom Impurities by Lattice Defects in Metals

The objective of this research is to investigate the diffusion and trapping of small atom impurities, such as hydrogen, nitrogen, and carbon in metals, such as nickel, which have been exposed to high energy inert gas ions. This research is being done in collaboration with Argonne National Laboratory scientists and facilities and with the University of Illinois. Trapping studies involve nuclear reactor techniques, secondary ion mass spectroscopy, and transmission electron microscopy. This basic research is directly related to the behavior of materials in nuclear fusion environments.